Restructuring Innovation: Geographical Perspectives on Technology Development

As with other facets of economic activity, spatial patterns of innovation and technological development have changed substantially in recent decades. New forms of developmental activity within individual firms and among groups of firms include joint ventures, licensing agreements, and research and development consortiums. Research on these trends has been long on theory and anecdotal evidence but short on systematic empirical analysis. This project will focus on two central questions: How have geographic patterns of industrial innovation and technological development changed as more activities have been conducted through arrangements outside the framework of individual firms? How have communications and other interactions among firms changed in response to increased externalization of innovation and technological development? Answers to these questions will result from information gathered through detailed surveys of executives in the industrial chemical, computer, and computer-assisted design and manufacturing equipment industries. These data will be analyzed quantitatively and statistically to determine the degree to which geographic dimensions of innovation and technological development have changed in recent years. This project will provide new data about the form and magnitude of developmental linkages among industrial firms for three different industries. Analyses of these data will provide new insights into changing spatial forms of innovation and technological development, and they will provide a basis for comparative evaluation of changing patterns in other industries.